CAREER: Ultrafast Quantum Networks: Pushing the Limits of Photon Production

Quantum networks relying on single photons to carry information are poised to enable a new generation of secure communication, efficient computing, and high-precision sensing technologies. However, transmitting each quantum bit requires generating many single photons. As a result, the current quantum bitrates in long-range networks are often in the kHz range and below, which is insufficient for most practical applications. This project will explore the physical limits to the speed of single-photon generation by coupling quantum emitters in nanometer-sized diamond particles to metallic structures much smaller than the wavelength of light. It will create the basic knowledge allowing quantum optical circuits to operate at practical MHz- and GHz-scale quantum bitrates and at non-cryogenic temperatures, with applications extending into classical optical communication links. The project includes a plan for developing educational modules to teach high-school and undergraduate students about quantum mechanics and the nascent quantum technology. Furthermore, the outreach activity for low-income middle-school students will increase their access to STEM content and scientific careers.

The proposed research project will investigate the fundamental speed and efficiency limits of plasmon-enhanced spontaneous emission. By coupling group-IV color centers in nanodiamonds to hybrid-mode plasmonic nanostructures made from low-loss crystalline metals, the project targets three major challenges. First, coherent spontaneous emission will be achieved on the sub-picosecond timescale. Second, the hybridization of dissimilar modes in nanostructures will unlock a giant field enhancement and near-unity radiative efficiency. Third, the project will achieve on-demand emission of indistinguishable photons into on-chip waveguide modes at near-THz repetition rates and at non-cryogenic temperatures. The proposed research will transform how future quantum photonic circuits operate. By increasing the light-matter interaction rates to the THz range, the project aims to outpace GHz-scale quantum dephasing and inhomogeneous broadening. The project will address the long-standing trade-off between electromagnetic field confinement and ohmic losses in plasmonic nanostructures and unlock the potential for high-bandwidth optical communication links. The project will create basic knowledge enabling practical MHz- and GHz-scale quantum bitrates, operation at non-cryogenic temperatures, and multipartite interaction of quantum dipoles for future quantum networks. The PI will develop education modules for middle-school and high-school students and provide research opportunities for at least two undergraduate researchers per semester.